Study of Flux-flow Dynamics in High-Tc Materials

This project is an investigation of the dynamics of flux-flow in high-Tc superconducting materials which are of technological and fundamental interest. Several methods will be employed to study the behavior of flux-flow. The primary method is the use of a SQUID magnetometer to measure directly the flux-line movement, which signals the onset of flux-flow. By studying the behavior of flux-flow, information about pinning centers and the static structure of the flux lattice can be obtained. In addition, the characteristics of flux-flow noise, important for device applications, will be investigated.